Vertex 2000 9th International Workshop on Vertex Detectors

Dr. Bortoletto seeks partial support for carrying out a workshop on the subject of detectors for studying the point of collisions in high-energy particles. This workshop is vital to the work being done in the U.S. in preparation for the Large Hadron Collider experiments.